CEDAR: Comparison of Ionospheric Joule Heating Rate with Poynting Flux and Energetic Particle Precipitation Energy Deposition

The PIs propose to estimate distributions of electrical conductivities, neutral wind profiles, and effective electric fields in the E region through radar experiments. Secondly, they will infer three energy transfer rates in individual ionospheric flux tubes, i.e. the net Poynting flux entering/leaving the top side of the tube, the Joule heating rate in the flux tube, and the energy carried into the flux tube by auroral particle precipitation. Finally, calculations will focus on statistical averages of energy transfer rates and their relative importance with respect to magnetic latitude and local time, season, geomagnetic activity, solar wind and IMF parameters, and phase of the solar cycle.